The Hydrodynamic Model for Semiconductor Devices: Theory and Computations

This research is concerned with theoretical and computational investigations of the flow of electrons and holes in semiconductor devices based on the hydrodynamic model. Numerical simulations of both 1-d and 2-d semiconductor devices are proposed, for both subsonic and subsonic/supersonic flow of charge carriers. The hydrodynamic shock waves will be analyzed theoretically and computationally. The physical importance of the hydrodynamic model for simulating 2-d Si and GaAs MESFETs will be demonstrated.